Mathematical Sciences: Information Mechanics

The investigator and his colleague construct and explore a range of physics-like models of computation, from chiefly conceptual to more application-oriented. Ballistic models of computation, for example, suggest ways to exploit atomic-scale effects for computer-logic operations. Fine-grained digital models of processes traditionally described by continuum methods (e.g., fluid dynamics) help in understanding what types of macroscopic behavior can be obtained from given microscopic laws. Information Mechanics is the study of computation viewed as a distinguished mode of operation of dynamical systems with a physics-like structure. A main task for information mechanics is to develop theoretical models of computation that more expressively and accurately reflect essential aspects of the underlying physics (such as locality, invertibility, inertia, quantum character), opening the way to more direct and efficient physical implementations of computing processes. Results of this line of investigation have a direct bearing on the theory and practice of computation and on the computational modeling of physics. For example, logic invertibility is now being exploited to reduce energy dissipation in computers; and lattice gases provide theoretical models and simulation tools for a better understanding of complex fluids.